NSF I/URC CELDi at the University of Nebraska-Lincoln

This action adds the University of Nebraska - Lincoln as a research site to the existing Industry/University Cooperative Research Center for Engineering Logistics and Distribution. This research site will broaden the research scope by considering research problems and issues affected by Radio Frequency Identification technologies, specialized facility location strategies, and logistics networks of non-traditional distribution operations.